NUTURING THE EMERGING LANGUAGE OF VIDEO: A Video-Making Workshop

"Nurturing the Emerging Language of Video: A Video-Making Workshop" is proposed to take place during the 2010 Ocean Sciences Meeting in Portland, Oregon in February, 2010. Randy Olson, a PhD Marine Biologist turned professional filmmaker will lead the workshop by delivering an opening presentation on filmmaking and using film to inform public audiences about scientific topics. A number of short videos (approximately 5 to 10) submitted by participants will then be viewed and discussed with constructive criticism offered on how to make them more compelling and interesting to a non-scientific audience. The workshop is being advertised to attract both those with short videos for discussion and a larger audience to view and discuss them. Since a few marine scientists are already beginning to use short videos for public outreach, the intended outcome of this workshop is to assist them in making more interesting and compelling videos. Also, the workshop will encourage more individuals to become involved with short videos for outreach related to their scientific research.